Computer-related Technical Support Services

This award will procure on-site computer-related technical support for NSF's Division of Science Resources Studies (SRS) which will include serving as technical resource to staff, providing system and logistical support and training, and disseminating SRS data. Encompassed in these tasks will be such major activities as: maintaining and optimizing SRS' computer system particularly with respect to developing an extensive graphics system, implementing a desktop publishing system, enhancing the current technology, both hardware and software utilized by staff. SRS is the principal means by which NSF fulfills its mandate to "...provide a central clearinghouse for the collection, interpretation, and analysis of data on the availability of, and the current and projected need for, scientific and technical revenues in the United States, and to provide a source for information for policy formulation by other agencies of the Federal Government..." In carrying out its responsibilities, SRS has increasingly made use of a variety of automated systems and it activities have become increasingly complex and highly computer intensive.